Vth International WEIN Symposium; A Conference on Physics Beyond the Standard Model; Santa Fe, NM; June 14-19, 1998.

The 1998 Symposium on Weak and Electromagnetic Interactions in Nuclei, to be held June 14-19, 1998, will focus on searches for new physics at low and medium energies, including theoretical studies in these areas. In addition, selected topics in the physics of the `standard model` will be included. Searches for new physics at high energy facilities, and topics in nuclear and particle astrophysics will also be discussed. The interaction between nuclear, atomic, and particle physicists which will take place at the Symposium should prove very scientifically fruitful.